Expansion of Undergraduate Geographic Information System (GIS) Training and Experiential Learning Opportunities

This southwestern project addresses the growing employment demand for trained Geographic Information Systems (GIS) technicians and analysts. This project also focuses on state-of-the-art GIS curriculum development incorporating work-based SCANS competencies and career-pathways into GIS degree programs. Research-based findings in technology education and minority student success, career pathways and project-based laboratory experiences form the basis for the further development of national skill standards. The objectives for the project include the: 1) Development of a series of work-based laboratory exercises that are employer-driven exposing students to the problems associated with the design and collection of reliable and accurate data sets using GPS and GIS programs; 2) Training of area secondary school faculty in the application of GIS and GPS as they apply to a variety of occupations that incorporate GIS components into current Technical Preparation agreements; 3) Increasing the number of rurally-isolated, minority secondary students who choose to participate in post-secondary GIS/GPS training for employment in currently unfilled GIS positions; 4) Working with the leading GIS and GPS software
companies in the development of industry-based skill standards; and 5) Sharing the curriculum developed with other colleges and NSF.